Low-emissivity Coatings based on Conductive Polymers for Energy-efficient Buildings

Buildings consume a large fraction of global energy, creating a need for innovative technologies that reduce heating and cooling demands. Low-emissivity (low-e) coatings improve energy efficiency by reflecting thermal radiation and helping maintain comfortable indoor temperatures throughout the year. However, conventional low-e coatings often rely on metallic materials that can increase manufacturing complexity and cost while limiting aesthetics and scalability. This project develops a new class of low-e paints and coatings based on the conductive polymer n-doped poly(benzodifurandione) (n-PBDF), which can be manufactured using scalable solution-based processes. The research combines advanced materials design with machine learning tools to accelerate the discovery of coating formulations that achieve high energy savings, visible transparency, and long-term durability. Preliminary results have demonstrated an n-PBDF-based low-e paint with exceptionally low thermal emissivity and substantial visible-light transmission, highlighting its promise as an alternative to conventional metallic coatings. The project advances energy-efficient building technologies while creating educational and outreach opportunities that engage students and the broader community.

This project investigates the design, fabrication, and performance of n-PBDF-based low-e coatings through three integrated tasks. First, high-throughput machine learning methods are employed to identify the spectral optical constants required to simultaneously achieve high visible transmittance and low near- and mid-infrared emissivity, and to establish how these properties can be realized through control of dopants and doping levels. Second, scalable fabrication approaches for bilayer low-e coatings are developed, and the effects of interfacial interactions on polymer texturing, optical behavior, and coating performance are elucidated. Third, the durability, reliability, and energy-saving potential of the coatings are evaluated under environmental stressors including ultraviolet radiation, moisture exposure, rain washout, and temperature extremes. The project's intellectual merit lies in establishing fundamental design principles that connect doping-controlled electronic structure, interfacial phenomena, and optical properties in conductive-polymer low-e materials. The broader impacts include enabling scalable and aesthetically versatile energy-efficiency technologies for buildings, training students in advanced materials science and thermal engineering, and fostering broader engagement in energy-efficient infrastructure research.